The Role of Advection and Fine-Scale Processes in Evolution of Upper Ocean Structure in the Equatorial Pacific: An Element of TROPIC HEAT

This project has constructed three Profiling Current Meters and deployed them as part of the TROPIC HEAT moored Intensive Array (Dec 1984-July 1985). Data from these deployments is being analyzed to understand equatorial wave- mean flow interaction at low frequencies and the statistics of shear and stratification fluctuations in relation to mean Equatorial Undercurrent structure at high frequencies.